Diode Array Spectrophotometers for Rapid Kinetics

9355765 Woods The project will purchase diode array spectrophotometers to measure rapid kinetics in the undergraduate biochemistry course. New experiments will be centered about enzymatic kinetics with data collection required at less than second intervals. The rates of formation and degradation of reactants, intermediates, and products will be determined.